Equivariant stable homotopy theory and K-theory

DMS-0075689
Gunnar Carlsson

This award provides partial support for graduate students,
postdoctoral researchers, and persons from under-represented
groups to attend a workshop on "Equivariant Stable Homotopy
Theory and K-theory. The main speakers include I. Madsen,
J.P. May, W. Dwyer, J. Morava, G.Carlsson, I Kriz, P. Hu,
D. Sinha, R. Mandel, G. Lewis, and J. Greenlees, each of
whom will give a one hour talk. In addition, there will be
5-10 short talks by participants. The workshop will be held
at Stanford University in the Summer of 2000.
Further information is available at http://math.stanford.edu/equihomotopy